Core-Plus Mathematics Project: Phase II

9618193 Hirsch The Core Plus Mathematics Project (CPMP), which was previously funded to develop materials for the first three years of high school mathematics, is developing materials for a fourth year. The fourth-year course builds on the first three and continues the preparation of students for college mathematics, including those who will become professional users of mathematics, and for direct entry to the workplace. Materials for three one-semester courses are being developed. The first semester course is intended for all students, the second course for students who intend to take calculus, and the third for students who do not intend to take calculus. The third course will emphasize discrete mathematics, probability, and statistics. A longitudinal study is being conducted that follows students whose preparation in middle school mathematics is based on one of the NSF-supported, comprehensive middle school curricula and who then study high school mathematics using CPMP or another of the NSF-supported, comprehensive high school curricula. The study also looks at the performance of students during the first year after completing high school.